Theoretical Calculations for Low Energy Atomic Collisions

Several problems in atomic collision physics are addressed. These include state to state interactions of excited Ca and N atoms with rare gas partners and collisional ionization. The research encompasses the calculation of appropriate interaction potentials using a combination of ab- initio and semi-empirical approaches and quantum mechanical close coupling calculations. The calculations are strongly coupled to experiments in the US and West Germany.